Optical Dynamics of the cw Raman Laser

This goal of this project to more fully understand the capabilities and limitations of the cw Raman laser through detailed probes of the optical dynamics. In particular, the research will i) expand the studies of the quantum statistics of the Stokes output, ii) measure the intensity correlations in the anti-Stokes four-wave mixing, and iii) build a cw Raman ring laser to study the competition and correlations in the forward and backward modal intensities.